Parental Work and Family Effects on Children: The United States and Great Britain Compared

This project compares intellectual development of children in the U.S. to the United Kingdom, comparing test scores on mathematics and language, and also reports of conduct problems. The general goal is to test whether findings from research in the U.S. also appear in data from another culture. The surveys in the two countries are designed to be highly comparable, thus permitting direct comparisons of effects in the two locations. Factors to be studied include family size, intact marriage, and parental work hours. This study is the first to permit direct comparisons of results from the large body of knowledge about U.S. families to results from another culture.